Electronic Dissemination of Conference Proceedings and Other Publications in Science and Mathematic Education

9354103 Novak About one thousand (1,000) pages of text and graphics form the Third International Seminar on Misconceptions and Educational Strategies in Science and Mathematics will be made available on floppy disc, DC-ROM, and on the Internet. Full Text access is therefore available from conference proceedings that would otherwise be difficult to search when using a paper copy. The project will explore the merits and problems of various electronic formats and distribution systems through a series of evaluations. The findings are potentially useful to science and mathematics educators, library and information science professionals and university students. ***